Graduate Student Support for Summer School in Topos Theory

Awodey is requesting funding to send two Ph.D. students in Pure and Applied Logic
at Carnegie Mellon University to a week-long summer school in topos theory.
The school will be held in Belgium, and is partially sponsored by the Department
of Mathematics of the University of Louvain-la-Neuve. In addition
to the PI, several distinguished researchers are participating as instructors.
The primary aim of the meeting is to provide students with an opportunity
to acquire advanced training in topos theory. Topics to be covered include:
general sheaf theory, classifying toposes, descent theory and groupoid representations,
homotopy and cohomology of toposes, algebraic set theory, and
realizability.
The students have successfully completed M.S. studies in Carnegie Mellon's
Logic and Computation program and are now doctoral students in
Carnegie Mellon's PhD program in Pure and Applied Logic. They are
judged to be promising logicians of outstanding ability, in a field that is
under-represented in U.S. logic.

Topos theory occupies a unique position in mathematics, connecting
logic, topology, and algebraic geometry. The notion of a topos originated
in the Grothendieck school of algebraic geometry as a generalized notion
of "space", but in logic it also subsumes Boolean-valued models, Cohen
forcing, and Kripke semantics, as well as topological and sheaf models. It is
also related to the logical notion of a deductive system of higher-order logic
or type theory.
The broader impacts of the proposed project include not only promoting
graduate education, but also enhancing infrastructure for research and
education through international partnerships; and the broad dissemination
of results, enhancing scientific and technological understanding.